Convection Heat Transfer from Discrete Sources

Convective heat transfer from small discrete heat sources embedded in a substrate is the focus of this research. Recently, attention has been directed to the cooling coolants. Little heat transfer information relevant to this situation is available in the literature. There is limited fundamental understanding of conjugate heat transfer effects, three-dimensionality of the flow and temperature fields, and the augmenting role of mixed convection. The investigation is aimed at adressing these needs through a combination of experimental and theoretical research. The experimental effort involves determination of the heat transfer coefficient for various flow rates, fluids, and heater and flow channel dimensions. The data will be presented in the form of standard heat transfer correlations. Flow visualization will determine the qualitative nature of the flow.